ITR: Resource Management Techniques for Internet Services on Large-Scale Clusters

Web-based services delivered on scalable cluster platforms are playing
an increasingly important role in today's society. A key aspect that
has not been sufficiently addressed is delivering scalable performance
with quality of service guarantees. It is all too common that web
services suffer from outages due to unexpected demand. In the future,
as even more computing devices (e.g., Sensor Networks) depend on
services, ensuring scalability, reliability, fault-tolerance and
quality of service will become paramount, and will allow our society
to function normally. This proposal aims at solving the critical
research necessary to achieve this vision.

This project will study the problem of resource management for
Internet services on large-scale clusters, and develop novel solutions
that address the shortcomings of traditional approaches (i.e., poor
resource utilization, high cost, and low flexibility). This work will
develop models that express how clusters share the resources, and will
devise metrics that capture the needs of Internet services. Performing
extensive simulations using workloads of real web services, a variety
of scheduling algorithms and techniques for managing resources will be
analyzed. Results from these studies will be applied in building an
actual cluster research prototype capable of delivering the desired
service guarantees.